Acquisition of a 600 MHz NMR Spectrometer at Virginia Tech

With support from the Major Research Instrumentation (MRI) Acquisition Program, the Department of Chemistry at Virginia Polytechnic Institute and State University will acquire a 600 MHz NMR spectrometer. The spectrometer will improve the diverse research capabilities at Virginia Tech in polymer chemistry, natural products, materials science, proteomics, nanomaterials, fuel cell membranes, biomolecular structure and dynamics, and structural biology.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most broadly used tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances and to provide information on the arrangement and connectivity of atoms in molecules. Dynamical information is obtained providing insight on the motions of molecules. This award will provide these essential analytical capabilities to chemists, biochemists, and their research students. Undergraduate students from Virginia Tech and neighboring colleges (e.g. Emory and Henry College, Roanoke College and Hollins University) will use the spectrometer in their research.